Rings of Algebraic Differential Operators in Mathematical Physics and Geometry

Berest

The proposed research lies at the intersection of several areas of
mathematics and mathematical physics, including geometric analysis,
representation theory, noncommutative algebra and algebraic geometry.
It is motivated by old (yet unsolved) problems in the theory of partial
differential equations. One such problem (known as the problem of lacunas)
deals with propagation of waves without diffusion, another with heat
kernels on Riemannian manifolds with finite asymptotics. Despite being
analytic by their nature, these problems exhibit a remarkable feature:
they have algebraic solutions. The earlier work of the PI and his
collaborators links these classical problems of analysis to various
questions of algebraic geometry and noncommutative algebra, concerning
rings of differential operators on algebraic varieties and their specific
representations (projective D-modules). One of the primary goals of this
proposal is to systematically study the properties of such modules, their
endomorphism rings and moduli spaces. The results obtained so far (mostly
in the case of curves) reveal many interesting connections with
noncommutative geometry, representation theory, combinatorics and
integrable systems. Another goal of the proposal is thus to investigate
some of these connections. In a different direction, the PI intends to
develop a new method for computing asymptotics of heat kernels based on
ideas of homotopical algebra.

The mathematical problems addressed in this project arise from the practical
question: what happens when a short signal (light or sound, say) is omitted
from a point A, travels through a medium and arrives at point B? There are
many possibilities: there could be focusing, diffraction, persistence of faint
echoes, or still a short `clean-cut' signal at B. This last possibility is of
particular interest, but it may occur only under very special conditions.
To describe these conditions in precise mathematical terms is one of the goals
of the proposal. The results sought in this direction are fundamental for our
understanding of wave phenomena and may have applications in related physical
sciences, including the theory of electromagnetic and acoustic waves, space
communication technologies, magneto-hydrodynamics, crystal optics, etc. As
a broader impact, the PI expects that the interdisciplinary nature of this
work will stimulate communication and collaboration between experts in the
various areas involved.